America's Ocean Challenge (AOC) -- A Planning Grant Proposal for a Large-format Film

Summerhays Film is requesting a planning grant to support the development of a large-format film and related educational materials to educate Americans about issues related to U.S. territorial waters. The critical strategic impact of the full project, entitled America's Ocean Challenge (AOC), is to measurably increase the American public's understanding and appreciation of our marine heritage, leading to public awareness of personal responsibilities for maintaining ocean health. The goal of the proposed planning phase is to complete planning for a comprehensive ISE program to be delivered in three phases over ten years. The work is being carried out in collaboration with The Ocean Project and supported by an advisory committee of scientists and informal science education specialists. Knight-Williams Research Communication will conduct front-end evaluation.